"A Symposium: Consistency and Variability in Peptide Families; Baton Rouge, Louisiana; August 1-5, 1988"

This award will partially support a symposium on neuropeptides at the Second International Congress of Comparative Physiology and Biochemistry.